Facility Request: Center for Limnology - Trout Lake Station

The Center for Limnology's Trout Lake Station provides access to a region with one of the densest concentrations of lakes in the world. Aquatic systems in this region range from temporary ponds to large lakes and represent a broad diversity of hydrologic, edaphic, and trophic conditions. Most of these systems lie within protected watersheds with low population densities. The diversity of these resources has led to an extensive history of aquatic research at the station. Early work began with the pioneering comparative investigations of Birge and Juday and was expanded upon by the whole-system experiments conducted by Hasler. Current programs at Trout Lake include several multi investigator, ecosystem-level investigations well as numerous smaller-scale projects involving population and community ecology, hydrology, fisheries biology, and basic limnology. Research activities at the station have undergone a major improvements in both the physical plant and the research capabilities of the station. This support will continue improvements in basic research capabilities. Specifically, support will be provided for instrument systems (a dissolved inorganic carbon, dissolved organic carbon analysis system; a dissolved oxygen, multi-parameter water monitor; and a hydroacoustic, fish sensing system) which will contribute substantially to the basic research capacity of the station. These improvements will help meet the primary goal of maintaining the Trout Lake Station as a national and inter- national center for aquatic research.